Mathematical Sciences: The Topology of Varieties

Hain intends to use the techniques of Hodge theory to study the topology of the space of compact Riemann surfaces and the topology of the space of n x m matrices over the complex numbers, all of whose minors are non-zero. Possible applications include the construction of generalizations of Euler's dilogarithm which satisfy natural generalizations of Abel's 5-term functional equation for the dilogarithm. A graduate student will employ a computer program Hain has written to aid in investigating the dilogarithm. The program decomposes representations of symmetric groups, which arise as huge tensor products. A high-powered personal computer will be devoted to this task.